Jaime Escalante Math and Science Program

The "Escalante Math and Science Program" is an instructional program at East Los Angeles College that involves many elements that research has shown are characteristic of highly successful programs: a comprehensive well-developed plan, dedicated staff, parental involvement, community support, motivation strategies, agreed-upon objectives, coordinated support services, and a willingness to challenge institutional policies. This program will increase the number of students who are at and above grade level in mathematics and science and in addition will prepare inner-city , under-represented students for the Advanced Placement Test in calculus, computer science, chemistry, English, and physics. The program will develop a formal process to bring together teachers, counselors, and staff from junior high schools, high schools, community colleges, and four year colleges to improve course articulation and to better address the unique needs of the target population. A leadership component assures that the project will be disseminated to other schools in the Los Angeles area. Substantial cost-sharing from the school district, industry, and East Los Angeles College indicates extensive support for this program.